Mathematical Sciences: Support for the Establishment of a National Institute of Statistical Sciences

Activities in support of the establishment of a national institute of statistical sciences will be carried out by a committee and its head under the sponsorship of the American Statistical Association. These activities include committee meetings and travel by the head of the committee for consultation with various potential sponsors of the institute. They also include the development of a formal prospectus as well as preliminary versions of a more detailed proposal.